RIMI: An Experimental/Numerical Investigation of Double Diffusive Convection During Solidification

This investigation will both experimental and numerical. The objectives of the proposed research are as follow: 1) Experimental Investigations (These are divided into two parts). a) Experimental investigation of double- diffusive convection in a static V-shaped sump during the binary system solidification process. b) Experimental investigation of double- diffusive convection during the continuous casting process. 2) As far as the numerical investigation is concerned, this section is also divided into two parts. a) Development of mathematical modeling and refinement. b) Numerical study of the continuous casting process. The specific objectives are to obtain velocity, temperature, concentration distribution, and the evaluation of the solid liquid interface in the cases cited for which rigorous experimental and numerically results are not available, and to present correlations, tables and graphs for use in industrial applications. It is believed that the availability of accurate experimental/numerical results for these fundamental problems is important from an academic and practical point of view and that they will further enhance research in these area.